Dissertation Research: The Role of the Southern Cooks in East Polynesian Colonization and Differentiation

As part of her doctoral dissertation research, Ms. Melinda Allen will conduct an archaeological and geological survey of the West coast of Aitutaki Island in the Southern Cooks Islands. She will lay out transects running from the coast inland, and conduct test excavations as well as an auger survey. Additional excavation will take place in areas discovered to have high archaeological potential. The data collected will permit a reconstruction of the geological history of Aitutake and provide information on the island's earliest inhabitants. The Polynesian islands, many separated from each other by long stretches of water, were rapidly colonized from West to East by a seafaring people. While the general outline of the colonization is clear, many of the specifics remain unresolved. In particular it is not known whether the ocean between Western and Eastern Polynesia provided a major barrier and if so, how long it took to cross. The Southern Cooks lie at the Western extremity of Eastern Polynesia. Although they have not as yet yielded relevant sites Ms. Allen believes that a variety of geomorphological processes would have led to deposition of sediment in the most likely areas of early habitation and thus sites are buried. In this research she will determine depositional history of Aitutaki and try to locate early remains. This research is important because it will increase our understanding of the role mobility and migration play in human adaptation. If successful it will also provide archaeologists with clues of where and how to look for such sites on other Pacific islands.